Presidential Awards for Excellence in Science, Mathematics and Engineering Mentoring.

Ms. Ingrum is Assistant to the Dean and Director of Minority Programs in the School of Engineering and Applied Science at the University of Pennsylvania. In her role as liaison, she has 25 years of experience mentoring engineering students. Over 350 successful undergraduates have received scholarships, including the first African American woman to receive a bachelors degree in mechanical engineering at the University of Pennsylvania. Her sustained record of achievements include: Direction and management of minority student affairs at the university. Developed, organized and implemented numerous programs for the School of Engineering, including young scholars programs, research programs and peer coaching and mentoring programs. These programs help make Penn State one of the top universities awarding engineering Ph.D. degrees to minority students. Advisor to the local chapter of the Society of Black Engineers and the Society of Hispanic and Professional Engineers. Impressive support letters from a variety of individuals. Maintaining ties to former students, encouraging them to mentor others. A life committed to positively impacting students, having a track record of success in mentoring beyond the university.